Earthquake Type Loading on R/C Beam - Column Connections: Special Cases of Wide Beams and Eccentric Beams

The inelastic seismic behavior of two special types of reinforced concrete (RIC) beam- column connection is investigated. These special cases exist in situations where (1) the beam centerline does not intersect the column center, and (2) the beam section is wider than the column. Both cases are remitted in normal design of R/C ductile frame buildings but the accuracy and safety of current design provisions has been uncertain. An experimental study program consisting of simulated earthquake testing of at least eight beam-column connections, four of each special case noted above will be conducted. A complimentary analytical investigation will also be carried out to verify the measured results and extend the results into a prediction of the expected dynamic response of R/C frame structures with such special connections. The final goal of the project will be a verification of existing design provisions or proposals for revised requirements.